Sensory Determinants of Sperm Delivery

Male reproductive fitness is dependent in part on the ability of a male to transfer sufficient sperm to the female to ensure ovum fertilization. Thus, male copulatory behavior should function to optimize sperm transfer to the female. Dr. Tokarz will investigate the sensory determinants of optimal sperm delivery while using the lizard reproductive system as an experimental model. The research to be performed addresses both causal mechanisms and functional outcomes of male copulatory behavior. Results from this research promise to increase our understanding of how sensory feedback influences the orientation and duration of copulation. It should also provide insight into how copulatory behavior affects sperm delivery and thus male reproductive success.